Anatomy and Evolution of the Intracontinental Reno-MarysvaleMagmatic Zone in the Great Basin of Nevada and Utah

This is the continuation of a two -year, NSF-funded project begun August, 1986 to obtain integrated space-time-composition-volume data on the Reno-Marysvale magmatic zone, a region that spans across the Great Basin of Nevada and Utah consisting of voluminous, Oligocene through early Miocene ash-flow tuffs and minor andesite to rhyolite lavas. The research involves: (a) Field study and sampling of volcanic sequences and petrographic, whole-rock XRF, and microprobe analyses of phenocrysts and glass by PI's at BYU. (b) Determination of high-precision, single- crystal 40Ar/39Ar ages and natural remanent magnetization directions of regionally-extensive ash-flow sheets by A.L. Deino at the Berkeley Geochronology Center and C.S. Gromme at the USGS, Menlo Park, CA, respectively. (c) Correlation of regional ash- flow tuff sheets and compilation of space-time-volume-composition data on tuffs and lavas by PI's at BYU. (d) Determination of Sr, Nd, and Pb isotopic data by J. Ruiz and J.L. Wooden at the Univ. of Arizona and USGS, Menlo Park, CA respectively. These data will provide a detailed picture of the evolution in time and space of a major intracontinental volcanic province and will allow conception of interpretive models dealing with: (1) Time- and space-dependent changes i composition of extruded magma and in type of eruption--pyroclastic versus lava. (2) Relative contributions of mantle-derived versus crustal components to the mass and thermal energy budget of the magma systems. (3) Contributing roles played by subducting oceanic lithosphere and changing thermal, mechanical, and density state of the crust.***//